WaterSIMmersive: Designing and assessing a mixed-reality water sustainability educational game and museum exhibit for communities in the Desert Southwest

Amidst the most severe megadrought over the last 1,200 years in the U.S. Southwest, it is essential that residents of the region understand where their water comes from, how it is used, and what options for conservation exist. Researchers at Arizona State University (ASU), in partnership with the Smithsonian Museum on Main Street (MoMS), the Arizona Science Center, and eight rural museum sites around Arizona, will help educate and empower communities living in the Desert Southwest on water sustainability issues through the creation of WaterSIMmersion, a mixed reality (MR) game and accompanying museum exhibit. By engaging visitors in whole-body interactions, social learning opportunities, and real-time, adaptive feedback, the MR game has the potential to deepen understanding of STEM concepts in ways that more static museum displays are unable to. Informed by the stories, knowledge, and experiences of underserved urban and rural community members, the game will challenge museum visitors to allocate water to fulfill the needs of various stakeholders they encounter along the Colorado River. Relying on data visualizations and perspectives provided by these virtual characters, visitors will begin to understand the complexities of water system supply and demand pressures in their own communities and across the region. Surrounding exhibit panels will showcase local water stories, discuss strategies and myths around water conservation, and reinforce lessons learned in the game. The exhibit will be co-designed with families from regional rural communities, and while the target age group for the mixed reality game is middle school, the exhibit will appeal to visitors of all ages.

Through the process of developing and then studying WaterSIMmersion, the team will attempt to answer the following research questions: (1) How can complex scientific modeling systems be adapted to engage and educate the public about STEM issues of critical importance to the well-being of their communities? (2) How can game interfaces be designed to provide real-time, data-driven formative feedback that is comprehensible and engaging to a range of museum visitors? (3) How can virtualized human and embodied interventions at museums affect knowledge, behaviors, and attitudes about natural resource management and conservation in enduring ways? Game and exhibit development will follow a "transactional design model" (Lauer, 2020), which suggests that decision-making about consequential natural resource challenges is best facilitated when the scientific knowledge of experts is posited as equal with the experiences of local residents and their traditional ecological knowledge. ASU graduate students from a range of rural communities will interview fellow residents about their experiences with water. These "water stories" will then be integrated into the game and exhibit. The team will conduct observation and interview research to test engagement and deploy quasi-experimental studies to help them understand how visitors' knowledge, attitudes, and behaviors toward water sustainability might vary between those who play the game, compared to those who observe or do not play. WaterSIMersion will first be hosted by the Arizona Science Center and then travel to eight rural museums across Arizona, ultimately reaching thousands of visitors during the study period. The project will both empower communities disproportionately affected by climate uncertainty and drought and offer a model for other museums to co-design with and for learners that value their lived experiences and capitalize on these experiences to promote community action.

This Integrating Research and Practice project is funded by the Advancing Informal STEM Learning (AISL) program, which supports projects that: (a) contribute to research and practice; (b) promote personal and educational success in STEM; (c) advance public engagement in scientific discovery; (d) foster interest in STEM careers; (e) create and enhance the theoretical and empirical foundations for effective informal STEM learning; (f) improve community vibrancy; and/or (g) enhance science communication and the public's engagement in and understanding of STEM and STEM processes.